Laterally Loaded Manufactured Homes (Phase 1)

9301829 Goodman This research project will develop a three-dimensional mathematical model to analyze the structural performance of a typical manufactured house subjected to extreme winds and other lateral loads. The math model will be verified by a full scale experiment of a generic manufactured house.